Conference: Hawaii Workshop on Parallel Algorithms and Data Structures

This award will support a workshop on Parallel Algorithms and Data Structures at the University of Hawaii, Manoa, March 17-21, 2025. Parallel Algorithms research is an important topic, since parallel computing hardware is omnipresent in many application domains, whether based on multicore processors, graphic processing units (GPUs), or other emerging structures, but most current algorithms research is still following the single-processor sequential model.

The workshop will bring about 40 researchers together, including 15 doctoral students, to identify, formalize, and attempt to solve problems in parallel algorithms and data structures. It will contribute both to the research progress of the field and the research involvement of the doctoral students. The University of Hawaii is a Pacific-Islander-serving institution in an EPSCoR state.